Chaotic Dynamics, Attractors and Repellers

Abstract
Chernov

The project is devoted to mathematical problems in equilibrium and
nonequilibrium statistical mechanics, focusing on the ergodic and
statistical properties of deterministic chaotic dynamical systems.
Specific models include Lorentz gases in external fields, viscous
gases of hard balls, open Hamiltonian systems with escape holes. We
are going to study rigorously several laws of physics (including
Ohm's law, Green-Kubo formula and Einstein relation) for
multiparticle Lorentz gases in external fields with discrete and
continuous times. We expect to prove exponential decay of
correlations, Bernoulli property and various probabilistic limit
theorems. The ergodic properties and entropy of hard ball gases will
also be studied. Another direction of research is to investigate
conditionally invariant measures, escape-rate formalism, and fractal
structure of chaotic repellers in open systems (with escape holes).

The mathematical theory of chaos and dynamical systems has grown
dramatically over the past 40 years. It started with foundations of
statistical physics created by Boltzmann and Maxwell. It has covered
basic biological models (dynamics of population), various problems
in engineering, earthquake prediction, traffic control, neural
networks for computer data processing, optimization of manufacturing
and management tasks, and has countless other applications where
long-time behavior of complex systems is in question. Universal
features of chaos exhibited by various processes in nature and
society make it possible to describe and predict such phenomena
by the means of one theory. In particular, the concepts of
attractors and repellers (as structures or patterns determining
long-time evolution of complex systems) are basic categories in
the theory of chaos. Mathematical theory of chaotic attractors
and repellers is still relatively young and quite different from
the old, classical mathematics.